Conference: Several Complex Variables and Complex Geometry: A Satellite Conference of the 2026 ICM in Philadelphia

This award provides partial support for “Several Complex Variables and Complex Geometry: A Satellite Conference of the 2026 ICM in Philadelphia” which will be held at Rutgers University in New Brunswick, New Jersey, from July 17–21, 2026. The event will serve as an excellent platform to highlight recent and exciting advances in the field, offering a broader scientific perspective on Several Complex Variables and Complex Geometry. This important area of mathematics has experienced remarkable progress in recent years, fueled by deep and productive interactions with many other branches of the discipline. The significance of this growth is reflected in the ICM 2026 program, which features one plenary speaker and several invited speakers representing the broadly interpreted domain of SCV and Complex Geometry.

This satellite conference aims to capture that broader scope and foster further advances by providing a valuable opportunity for interaction among researchers. The scientific program will cover, but is not limited to, the following topics: Dbar-equations in Complex Analysis and Geometry, Kohn’s Multiplier Ideals and Their Applications in Complex Analysis and Geometry, Rigidity Problems in Complex Analysis and Geometry, Normal Form Theory and Complex Dynamics, Asymptotic Expansion of Bergman Kernel Functions and Related Topics, Holomorphic Deformations of Compact Complex Manifolds, and Nevanlinna Theory and Complex Hyperbolicity. It will be especially beneficial for scholars in the United States, including young researchers, by offering a unique and convenient venue to engage with numerous leading experts and peers from around the world. More information about the conference is available https://sites.rutgers.edu/scvcgc/ .